Moana Wave Wind

This project will support shipboard scientific support equipment for the research vessel MOANA WAVE a Navy-owned ship operated by the University of Hawaii and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Keith W. Kaulum is fully qualified to direct this project having had considerable experience in managing the acquisition and installation of shipboard equipment. This action transfers funds to the Office of Naval Research, (ONR). NSF and ONR are contributing equal shares toward a new hydrographic winch for the R/V MOANA WAVE.